Seminar on Stochastic Processes 2009

Modeled after P.A. Meyers Seminaire de Probabilit'e which propelled the French probability school to the forefront of research in the seventies, the Seminar on Stochastic Processes was created in the eighties by Chung, Cinlar and Getoor to have the same boosting effect on this side of the Atlantic.
This initiative had a tremendous impact on the probability community, reaching far beyond the limits of the North American continent.
Researchers from all over the world strive for an invitation as peer recognition of their international standing. The list of past invited speakers is a Who is Who in the world of probability.
The scientific committee strives to include successful young researchers, minorities and women in the list of speakers.
Financial support to attend the conference will preferentially be given to graduate students, postdocs, women and minorities as well as junior faculty who may not otherwise be able to attend the conference.